Identifying Geoscience Human-Resources Data Needs - A Workshop for Educators and Employers, Greenbelt, Maryland

0090781
Claudy

A workshop will be convened for geoscience educators and employers to determine guidelines for the design, content, and implementation of geoscience human-resources surveys. The workshop will focus specifically on what human-resources data are needed and by whom, the best methods to obtain the data, and how to disseminate the data most effectively. Workshop participants will b selected from the following groups: college and university geoscience faculty (representing institutions that are public and private, large and small, undergraduate and comprehensive, and regionally diverse), college and university deans and university career counselors, traditional employers of geoscientists (petroleum industry, mining and minerals industry, federal and state governments, environmental consulting firms, and academia), non-traditional employers of geoscientists (law, journalism, finance, computer/Information Technology), representatives fro, other science societies with ongoing survey programs, representatives from professional geoscience societies, and students.